Japan-USA Symposium on Flexible Automation; Hiroshima, Japan, July 15-17, 2002

The 2002 Japan-USA Symposium on Flexible Automation co-organized by Georgia Tech will be held in Hiroshima, Japan, July 15-17, 2002. The symposium will consist of three days of technical presentations, panel discussions, and keynote speeches, followed by tours to major university research laboratories and industry production facilities in Japan. The financial assistance will make it possible for many promising U.S. researchers such as faculty, postdoctoral fellows, and graduate students to attend the conference and learn about research, development, and implementation of flexible automation technologies in Japan. It will also enhance the ability of the symposium organizers to attract top university researchers in U.S. to contribute to the symposium.